Effect of Cenozoic `Ocean Gateway' Changes on the Ocean Circulation

Ocean modelling suggests that the effect of the closure of central American isthmus on ocean circulation was greater than previously suspected. The PI will continue his sensitivity experiments on the effect of oceanic gateways through the simulation of the Ocean General Circulation model. He will also focus on the equatorial ocean model which is interactive with atmosphere to test the upwelling patterns in equatorial Pacific. The results of these modelling experiments will lead to understanding of the causes for changes in Cenozoic oceanic circulation.